Young Scholars Program - Food and Nutrition

The Department of Nutrition and Food Science at Utah State University is proposing to conduct a three week residential Young Scholars program during the Summer of 1989 and 1990. Participants will be 16-20 high school students who will either Year 11 or 12 the following Fall. This program will take advantage of the multidisciplinary nature of this department to enhance the knowledge of participants in the science career and in understanding the philosophy and ethics of science. It includes a mix of activities (lectures, workshops, demonstrations, laboratory project work, field trips) that will allow close interactions between participants and scientists. Both general science topics and topics specific to food and nutrition will be discussed. As part of the their project work, each participant will have the opportunity to work with a faculty scientist on a individual and small group basis. They will learn specific research techniques as well as general methodology. Participants will be selected from the western region of the United States and an effort will be made to recruit students of high potential who may not have had the opportunity to participate in such a program in the past.